Enhancing the Power and Performance of Tabled Evaluation of Logic Programs

This project continues work on the development of XSB system. XSB is a system that integrates logic programming, deductive databases and nonmonotonic reasoning. It uses SLG resolution, a tabled evaluation strategy, to combine Prolog's SLD and deductive databases's bottom up evaluation in a computationally effective way. Current benchmarks show that the XSB system is significantly faster than more traditional approaches to deductive database query evaluation, and shows promise of being very efficient for certain types of nonmonotonic reasoning. In the current project, the XSB implementation will be improved by; (1) improving the underlying WAM-based engine to make it more efficient, and (2) developing program transformation techniques to permit XSB programs to be optimized at the source level.